US-UK Cooperative Research: Use of High Performance Computing and Networking for Computer Integrated Manfacturing

This award will support a two year program to share facilities and researchers to carry out complementary work on the use of high performance computing and networking for computer integrated manufacturing. The investigators are Dr. H. T. Kung, Carnegie- Mellon University and Dr. Peter Dew and Alan DePennington, Department of Mechanical Engineering, Leeds University, England. Professor Kung and his group are at the forefront of the most promising areas of high performance network parallel computer systems. Dr. DePennington and Dew lead an internationally recognized, cross-disciplinary research program in mechanical engineering and computer science. This project will focus on the following specific tasks: 1) Continue the development of application programming by benchmarking the Meiko Computing Surface against CMU machines, and investigate the potential use of AL within the analysis phase of the product life cycle 2) Investigate the issue of portability of software between diverse parallel machines and develop tools to aid this process and computers. Both research groups have complementary research programs. Through this project, the Leeds group will improve their understanding of CIM requirements for exploiting parallel computation; the CMU group will gain application insight into the characteristics of high performance networked parallel architectures and requirements for future software environments.